FASEB Conference on: Ubiquitin and Intracellular Degradation Protein, June 20-25, 1993, Saxtons River, Vermont

This is a request for funds to help support a conference (titled above) to be held June 20-25, 1993 at Vermont Academy, Saxtons River, VT. It is a biennial conference, initiated in 1989, which is sponsored and partially supported by the Federation of the American Societies of Experimental Biology. The focus of the conference is on the mechanisms of intracellular protein degradation with an emphasis on the ubiquitin-dependent proteolytic pathway. Ubiquitin is a small, highly conserved eukaryotic protein. It functions in protein breakdown by becoming covalently linked to other proteins and serves as a reusable recognition signal for proteolysis. Specific sessions will include the biochemistry, molecular biology and genetics of the ubiquitin system, targets and functions of the ubiquitin pathway, non- ubiquitin proteolytic systems in eucaryotic and in procaryotic cells, recognition signals for protein breakdown, the proteasome, proteolysis and antigen presentation enzymology and regulation of protein breakdown in prokaryotes, and protein degradation in organelles.